Industry/University Cooperative Research Activity: High Velocity Fluidized Beds

It is the object of this study to further increase the fundamental understanding of the behavior of high velocity fluidized beds so that their attractive features may be more readily utilized on a commercial scale. These beds are utilized at present in catalytic cracking for gasoline production, acrylonitile production, the production of gasoline from coal in South Africa, and many other applications in the chemical, metallurgical, and petroleum industries. The focus of this research is to determine the structure and operating characteristics of these beds using x-ray imaging, solid and gas tracers, and pressure transducers. Understanding the behavior of the bed as a chemical reactor will be stressed.